Dissertation Research: Applied Ecological Model of the Multipurpose Tree Species Leucaena leucocephala (Lam.) de Wit (Leguminosae) and its Major Pest, Heteropsylla cubana...

Agroforestry has bound new popularity in many less- developed countries as farmers and farm researchers rediscover its potential for conserving tropical soils while boosting long-term farm production. However, pest control in agroforestry has received little attention. The importance of such research was underscored recently when stands of the popular agroforestry tree species Leucaena leucocephala (Lam) de Wit in Asia were decimated by an invasion of the introduced psyllid pest Heteropsylla cubana Crawford (Homoptera: Psyllidae). The project proposed herein offers to outline the scientific basis of the L. leucocephala/H.cubana problem by linking tree growth and psyllid population dynamics to energy allocation at each trophic level. Central to this effort is the development of a strategic simulation model. Data on energy allocation and maximum age-specific growth rates for tree and herbivore will be collected under varying nutrient regimes, primarily using simple dry matter measurements. Other growth parameters will be determined experimentally or drawn from the extensive literature on Leucaena leucocephala. The model will then be validated against at least one year's worth of data not used in the original parameterization, obtained from several sites in Thailand. Sensitivity analyses will be conducted on mortality factors, weather and other variables to deduce those most likely to promote psyllid outbreaks. Thailand has had significant problems with the psyllid epidemic, and the proposed research will be conducted incooperation with that country's national biological control program. The resulting model will find immediate application in estimating yield losses due to the herbivore, planning leucaena psyllid biological control programs, delineating high-risk areas for leucaena cultivation, and developing improved cultural controls for the pest in less-developed countries. The effort could also lay the groundwork for analyzing pest problems in other agroforestry tree species.